LTER: MCR IV: Long-Term Dynamics of a Coral Reef Ecosystem

Coral reefs provide important benefits to society, from food to exceptional biodiversity to shoreline protection and recreation, but they are threatened by natural perturbations and human activities, including those causing global-scale changes. These pressures increasingly are causing coral reefs to undergo large, often abrupt, ecological changes where corals are being replaced by seaweeds or other undesirable organisms. Historically, the major agent of disturbance to coral reefs has been powerful storms, but in recent decades, episodes of mass coral bleaching from marine heat waves have become more frequent and severe as the temperature of ocean surface waters continues to rise. Coral reefs are further stressed by local human activities that cause nutrient pollution and deplete herbivorous fishes that control growth of seaweeds. Studying how coral reefs respond to these two types of disturbance under different levels of nutrient pollution and fishing provides essential information on what affects the ability of coral reefs to buffer environmental change and disturbances without collapsing to a persistent, degraded condition. The fundamental goals of the Moorea Coral Reef Long Term Ecological Research program (MCR LTER) are to understand how and why coral reefs change over time, to assess the consequences of these changes, and to contribute scientific knowledge needed to sustain coral reef ecosystems and the important societal services they provide. This research improves understanding and management of coral reefs, which benefits all groups concerned with the welfare of this ecologically, economically and culturally important ecosystem. In addition to academic communities, scientific findings are communicated to interested individuals, non-governmental organizations, island communities and governmental entities. These findings also are integrated into K-12, undergraduate, graduate and public education activities through a multi-pronged program that includes inquiry-based curricula, interactive and media-based public education programs, and internet-based resources. MCR’s research, training, education and outreach efforts all emphasize broadening participation in STEM fields and strengthening STEM literacy.

New research activities build on MCR LTER’s powerful foundation of long-term observations and broad ecological understanding of oceanic coral reefs to address the following core issues: How is the changing disturbance regime (recurrent heat waves in addition to cyclonic storms) altering the resilience of coral reefs, and what are the ecological consequences of altered resilience? Research activities are organized around a unifying framework that explicitly addresses how reef communities are affected by the nature and history of coral-killing disturbances, and how those responses to disturbance are influenced by the pattern of local human stressors. New studies answer three focal questions: (1) How do different disturbance types, which either remove (storms) or retain (heat waves) dead coral skeletons, affect community dynamics, abrupt changes in ecological state, and resilience? (2) How do local stressors interact with new disturbance regimes to create spatial heterogeneity in community dynamics, ecosystem processes, and spatial resilience? And (3) What attributes of coral and coral reef communities influence their capacity to remain resilient under current and future environmental conditions? These questions provide an unparalleled opportunity to test hypotheses and advance theory regarding ecological resilience and the causes and consequences of abrupt ecological change, which is broadly relevant across aquatic and terrestrial ecosystems.